Minority Graduate Assistantship in Chemistry: Joe D. Escobar

Joe D. Escobar has been awarded a Minority Graduate Assistantship in Chemistry. Mr. Escobar's baccalaureate degree was from the University of California at Santa Cruz with a major in chemistry. He will pursue a Ph.D. at the University of California at San Diego in the area of Inorganic Chemistry; Professor Bernard Kirtman will serve as his advisor. The Minority Graduate Assistantships in Chemistry are viewed as an important infrastructural investment designed to broaden the participation, knowledge and experience of minorities and attract them into meaningful careers in chemical research and teaching.